SGER: Proposal to Analyze, Catalogue, and Return to Alaska Materials from the Hot Springs Village Site Currently in Sapporo, Japan

0137756
Maschner

The Hot Springs Village site, located on the Alaska Peninsula, was excavated in the 1970s and 1980s by Professors Hiroaki and Atsuko Okada. The Okadas produced preliminary reports of the excavations, but were unable to complete the final analysis. Now contemporary archaeologists will assist the Okadas with the final analysis and transport the artifacts and other materials back to Alaska for curation at the Museum of the Aleutians.